ATD: Statistical Methods and Software for Analyzing Massively Parallel Epigenomic Sequencing Data

The dawn of the massively parallel sequencing technology has propelled
research in epigenetics, from genome-wide methylation profiling,
histone modification patterns clustering, to identifying gene
regulation through spatial interactions. The power of epigenetics
has already been felt, such as its use in making drugs for treating
several diseases, but unfortunately, it has also been recognized that
it may be exploited for the bad. The powerful, rapidly acquirable,
stable, and heritable features of epigenetic could be a perfect vehicle
for bio-terrorism. The regulatory mechanism of gene expression may
be altered based on the epigenetic principle to create mutant cells
with devastating consequences very quickly. To counter the potential
of such threat, the detection of changes in epigenetic marks is a
key issue. This project aims to develop likelihood based as well
as Bayesian methodology, computational algorithms and associated
software for analyzing massively parallel epigenomic sequencing data
that are tangible for detection of biological threats. The focus will
be on chromatin signature and structure analysis to study histone
binding patterns in promoters and enhancers and spatial interactions
between promoters and enhancers within a protein complex. Methods and
algorithms developed will be implemented in three software packages:
DIME, ChAPE, and BASIC. It is anticipated that the analytical tools
developed will contribute to uncover global host-response epigenetic
patterns.

Charles Darwin's publication of "On the origin of species" 150 years
ago has taught us that evolutionary changes take many generations
of natural selection. In recent years, however, a new scientific
area called epigenetics is helping to usher in a paradigm shift. It
is hypothesized, based on amassed scientific evidence, that powerful
environmental conditions may leave an imprint on the genetic material,
which can lead to passage of new traits in a single generation
through the epigenetic process. The importance of epigenetics has
been recognized in the scientific community, and indeed, epigenetics
has been used for the good, such as its utilization for producing drugs
for treating complex diseases. Unfortunately, it may also be exploited
by bio-terrorists. In other words, gene regulation mechanism may be
altered to create mutant cells, which could pose great threats with
devastating consequence. Anticipating the potential of such type of
threats, this project proposes statistical methods and computational
algorithms to analyze epigenetic data from advanced genomic sequencing
technology to detect mutant cells that may have gone through epigenetic
changes. These tools are anticipated to contribute to early detection
of exposure to potential biowarfare pathogen. This project will also
contribute to the training of the next generation of researchers in
a cutting-edge interdisciplinary research area that fuses knowledge
in biology, statistics and computer science.